Dynamics and Structure of Metal Surfaces and Metal-on-Metal Systems-Temperature Dependent Theoretical Studies

The characteristics of most metal surfaces are known to display strong deviations from the bulk. The interlayer spacing, the periodicity of atoms in a layer, the localized vibrational modes, and anisotropy and enhanced anharmonicity in the vibrational amplitudes are some attributes which may distinguish the surface atoms from those in the bulk crystal. The main objective of this theoretical grant is to isolate the effects of surface anharmonicity on the structure and dynamics of several technologically and fundamentally important clean metals and metal- on-metal systems. The study will consist of computer simulations using the molecular dynamics technique and interatomic potentials from the embedded atom method. %%% The research will explore properties of metal surfaces and of metal-metal interfaces to distinguish the effects of surface anharmonicities on surface and bulk properties. Close interaction will be maintained with experimental groups. The research results will be of importance to many applications where metal surfaces are important, i.e., electronics, corrosion, etc.